Application of Signal Processing CAD to the Digital Realization of Artificial Neural Networks

This is a project to extend the Lager CAD system with cells and tools for neural network design. The extended system is being used to design several systems of increasing sizes, the largest being a machine to recognize connected speech after being trained for each speaker. The resulting machine is expected to run much faster in the training phase than existing machines.